PYIA: Computer-Aided Analog Integrated Circuit (IC) Design

Michael Smith is working on the design of analog integrated circuits for two applications: integrated sensors and neural networks. He has designed CAD tools for analog circuit design, and has used these for the design of several novel chips. He is currently working with Kodak on sensors and neural network techniques for image acquisition.